QnTM: EMT - Quantum Network Information Theory

Problem statement Quantum information theory, the quantum extension of Shannon's classi-
cal information theory, has experienced a surge of interest and rapid technical advance over the past
ten years, largely in response to the development of quantum-mechanically based cryptographic
protocols and algorithms for quantum computing. Very recent work by the Principal Investigator
and collaborators has led to a \grand unification" in the two-user setting, and much is now under-
stood about the interplay between the plethora of quantum information processing resources such
as quantum channels, entanglement and classical communication. As progress in the field has been
hitherto guided by experiences from the classical theory, the next natural step is to investigate the
quantum extensions of classical network (or multi-user) information theory. We propose a number
of problems in quantum network information theory, including quantum versions of distributed
compression, coding for multiple-access channels, broadcast channels and channels with state in-
formation, and channel simulation with side information. Preliminary investigations indicate that
many of the methods used in quantum two-user information theory apply to the multi-user setting,
while revealing interesting new behaviour. Moreover, solutions to certain two-user problems may
be interpreted in stunning new ways as solutions to long sought after multi-user ones.
Intellectual merit This research will contribute to both quantum information theory and clas-
sical network information theory. Multi-user scenarios shed new light on the properties of quantum
information, in particular i) the ways in which two independent sources of quantum information
may be used, despite their delicate nature, to decode each other; ii) the ways in which a distributed
quantum source may be localized. On the other hand, \quantizing" classical results has hitherto
lead to several new techniques and re-interpretations of the classical theory.
Broader impact This research will contribute to developing links between network information
theory and quantum mechanics. On a more practical level, due to the traditional connection
between quantumness and privacy, network quantum information theory bears relevance to multi-
user quantum cryptography. There is perhaps only a handful of experts in quantum information
theory currently in the US; the way to improve this it through education. The funding of this
proposal would enable the training of PhD students in this area, and facilitate the introduction
of this new material into the University of Southern California course curriculum. The Principal
Investigator is developing a course on quantum information theory to be ordered in Fall 2005,
covering topics not ordered at any other US university. He is also writing a book with co-authors
A. Winter and P. Hayden entitled \Principles of Quantum Information Theory".